An Ultraviolet Laser For a Multi-User Confocal Microscope Facility

The central goal of this project is the development of advanced time-resolved FTIR instrumentation which will allow for the first time the investigation of a wide variety of biological systems at the sub-nanosecond to millisecond range. The proposed instrument will incorporate novel features which will address the major short-comings of current time-resolved FTIR instruments. The project will be supported by the newly formed Center for Photonics Research at Boston University and Bruker Instruments, Inc., a leader in time-resolved FTIR instrumentation In recent years it has been demonstrated that Fourier transform infrared (FTIR) difference spectroscopy can provide detailed information about dynamic changes in the protonation state, local environment and orientation of specific amino acid residues in proteins. This ability is enhanced by the recent development of powerful new methods for band assignments by the introduction of site-directed isotope labels (SDIL) into proteins. However, the current generation of FTIR instruments have fallen short of their promise for probing rapid conformational changes in biomolecular systems. Existing limitations are related to the lack of sufficiently powerful broad-band infrared sources, the relatively slow cycle-time or irreversible response of most biological systems upon activation, the prevalence of biological systems activated by mechanisms other than light, and the need to simultaneously monitor changes in the infrared and UV-visible absorption of a sample. We propose to develop a unique step-scan FTIR system with the ability to record simultaneous sub-nanosecond to millisecond infrared and W-visible absorption changes in biomolecular systems. The instrument will be based on recent breakthroughs in technology for ultra-high intensity broad-band continuous (CW) and pulsed IR sources, rapid sub-nanosecond transient recorders and infrared detectors and step-scan interferometers. The development of a novel synchronized sampl e step translator (SSST) will make it possible to shorten dramatically measurement times and open the door to the investigation of dynamic processes in a wide variety of biomolecular systems under physiological conditions, including systems not activated by light, systems with very slow cycle times and systems with irreversible processes. By combining this proposed FTIR instrumentation with the recently developed method of SDIL and site-directed non-native amino acid replacement (SNAAR), breakthroughs are expected in the fields of protein folding, enzyme mechanism, ion transport and signal reception. Transfer of the developed technology for future commercial use will be facilitated by the close interaction during the project with Bruker Instruments and through the Center for Photonics Research This request is for funds to purchase a Molecular Dynamics PhosphorImager for use in research and teaching in molecular biology. This instrument will be critical for research applications of at least eight faculty as well as in training undergraduate and graduate students in molecular biology. Autoradiography using storage phosphor technology offers several advantages over traditional detection methods. Quantitation of amounts of radioactive protein or DNA on gels or filters has traditionally been done using X-ray film and densitometry or using scintillation counters. Storage phosphors are up to 100 times more sensitive than X-ray film, enabling measurements well below levels of detection for film. Also, screens are quantitatively accurate over five orders of magnitude as compared to X-ray film which has a linear range over only two orders of magnitude. The new technology is also environmentally advantageous because it eliminates the heavy metal waste disposal problems associated with film processing, and when it replaces scintillation counting it reduces mixed organic and radiochemical waste disposal problems. This technology will enable new experimental appro aches, improve quantitation, enhance productivity, and it will afford our students state of the art training. Significant advances in digital imaging technology provide capabilities not otherwise available. The overall objective of this proposal is to obtain a 16-bit/pixel digital imager that will permit investigators in the Plant Sciences Building at The University of Georgia to profit from this technology. A single instrument that will provide images of media labelled with both radioisotopic and non-radioisotopic probes is requested. Supporting items include a microcomputer essential for operation of the imager, one high energy phosphor screen cassette for each major user, one low-energy phosphor screen cassette to be shared among all users, four chemiluminescence screen cassettes to be shared among all users, a grey-scale laser printer for routine and inexpensive output, and site-licensed image-analysis software. All will be integrated into an existing computer network that will not only permit data to be moved readily from the imager to each user s laboratory, but will also provide direct access to a publication quality color printer and to a CD recorder for archiving data. The imaging system (1) will permit us to obtain quantitative information with greatly enhanced sensitivity and accuracy, and (2) will dramatically decrease exposure times, permitting experiments to progress at a much more rapid pace. Current usage of film for imaging media in the Plant Sciences Building exceeds 4,700/year, indicating that a digital imager will receive extensive and efficient use. The instrument will be used primarily with DNA, RNA and protein blots, labelled with 32p, 1251, 35S, 14C, or with enzymes that yield chemiluminescence given appropriate substrates. Research programs that will benefit from the equipment range from mission-oriented (e.g., H. Roger Boerma) to fundamental (e.g., Kelly Dawe). These programs include the regulation of virulence genes in a plan t pathogen (Timothy Denny), intercellular movement of plant viruses and intracellular movement of viral glycoproteins (C. Michael Deom), characterization of root-knot nematode secretions (Richard Hussey and Celeste Ray), genetic improvement of pest resistance and stress tolerance in soybean (H. Roger Boerma), use of molecular markers in plant breeding and evolution (Gary Kochert), characterization of two pathways of polyamine synthesis in plants (Russell Malmberg), the genetics and cell biology of the maize meiotic centromere and kinetochore (Kelly Dawe), and a comparative evaluation of the phytochrome gene family and its expression in tomato and soghum (Lee Pratt and Marie-Michele Cordonnier-Pratt). In transmission electron microscopy of biological structures, there are two phenomena that often prevent imaging at the molecular level: radiation damage and contamination. These problems can be reduced by two approaches: protecting the specimen and/or improving the microscope. In the first approach, significant progress has been achieved. Firstly, a special apparatus has been developed for rapid cryoimmobilization of a living cell during light microscopic observation for further imaging as this cell's cryo-whole-mount. Cellular architecture is retained at the molecular level and therefore can be referred directly to the behavior of the living cell (Malecki 1992, Proc. EMSA 50: 566-567. Secondly, the deep negative staining / embedding procedure has been developed. A thick and uniform layer of embedment supports and protects the three-dimensional structure within the whole-mount. This electron-dense preparation is only transparent for electrons with high energies attainable at high accelerating voltages (Ris&Malecki 1993, J. Struct. Biol. 111:148-157). In this project, as the second approach, the aim is to improve the microscope for work